2011-12 Annual Meetings in ENG: High-Impact Science Changing the World

This award provides funding in FY 2011 to Ann Becker and Associates, Inc. (ABA) to provide conference planning and support services to the Engineering Research Centers (ERC), the Industry/University Cooperative Research Centers (I/UCRC), and the Emerging Frontiers in Research and Innovation (EFRI) Programs during FY 2011 and FY 2012.